National Workshop for Associate Deans for Innovation and Entrerpreneurship

This workshop aims to bring together stakeholders from US universities responsible for curating, developing and delivering programming, education, and other resources relating to innovation and entrepreneurship. This will better support universities on identifying and implementing best practices developed across the nation, help develop improved and more uniform practices for entrepreneurship education and for fostering entrepreneurship, and better inform the National Science Foundation on current activities and present and future needs of universities in the areas of innovation and entrepreneurship.